CAREER: Low Energy Ion Beam Modification of Magnetic Film Structures

9502413 Gutierrez This CAREER project will explore the influence of impinging low-energy ion beams (down to ~50 electron-volts) on various polycrystalline and single-crystalline transition metal magnetic film structures (iron, cobalt, nickel and their various alloys and nitrides) deposited on silicon and gallium-arsenide substrates. Different ion beam sputtering parameters such as substrate temperature, processing gas environment, ion beam angle of incidence, and ion beam energy will be varied in an effort to determine their influences on magnetic film characteristics. The physics of the ion beam-induced property modifications will be investigated, and this knowledge will be applied towards the controlled modification of technologically important magnetic properties such as saturation magnetization, coercivity, anisotropy, and magnetoresistance in more complicated layered magnetic film structures. The research program includes relevant collaborative efforts with Southwest Research Institute, the Naval Research Laboratory, the University of Texas at Austin, and the University of Missouri (Neutron Reactor Facility), and Commonwealth Scientific, Inc. %%% Magnetic film materials are lucrative structures for device implementation in the magnetic sensor, microwave/fiber-optic communication and magnetic storage industries. These materials have helped spur the rapid growth of the magnetic technology industry to its present ~$80 billion market. This CAREER research project will explore the influence of impinging low-energy ion beams on various transition metal ferromagnetic materials (iron, cobalt, nickel and their various alloys and nitrides) during film deposition. In particular, the ion beam-controlled modification of film saturation magnetization, magnetic anisotropy, coercivity, and giant magnetoresistance will be investigated. All film materi als will be processed on semiconductor substrates (silicon and gallium arsenide) to promote their possible implementation in devices. This research project will be operated in close cooperation with the innovative Materials Physics undergraduate curriculum program at Southwest Texas State University. ***